The 20th General Assembly of the International Astronomical Union in Baltimore, Maryland, in August 1988, Group Travel Award in Indian Currency

Description: This project provides travel support for fifteen Indian astronomers who plan to participate in the General Assembly Meeting of The International Astronomical Union, to be held in Baltimore, MD in August 1988, and in satellite symposia to be held in other parts of the U.S. Dr. Arthur Davidsen of the Space Telescopic Science Institute, Johns Hopkins University is co-chairman of the IAU Local Committee. The Indian counterpart is Dr. B.V. Sreekantan, Astrophysics Group, Tata Institute of Fundamental Research, Bombay. The Indian participants will be mainly from TIFR, the Physical Research Laboratory in Ahmedabad, Osmania University, and from the Udaipur Solar Observatory. Scope: Membership of the IAU includes over 150 scientists from India, and a large number of these have applied to participate in the general assembly meeting and to certain satellite symposia and colloquia in the U.S. Participation by Indian scientists is likely to significantly enhance the exchange of scientific information and increase the potential for joint research in this field where international cooperation is particularly important.